U.S. - Germany Cooperative Research: Integration of Statistical and Automatic Control Techniques for Economic Quality Control

This award supports Professor Enrique Del Castillo of the University of Texas at Arlington to collaborate in Quality Engineering with Professor Elart von Collani of the University of Wuerzburg, Germany. The objective of their research is to develop process control procedures that integrate statistical process control and automatic (or engineering) process control techniques for the quality assurance of manufacturing processes. Dr. Del Castillo brings to this joint effort strengths in working with stochastic models that incorporate process dynamics. This is complemented by Dr. von Collani's expertise in the economic modelling of manufacturing processes and in the relevant statistical sampling procedures for quality control. This research will contribute to an emerging field of industrial research: the application of engineering control theory principles to the area of quality control. It should result in a new generation of economically influenced process control procedures for short-run manufacturing systems.